Lagrangian Description of Bedload Transport by Salutating Particles: Theory and Experiments

The objective is a bedload transport model for the channels and rivers. The following problems will be addressed: bedload transport of mixtures, bedload-induced roughness, boundary conditions for suspended sediment computations, transverse bedload transport, and transition from bedload into suspension. A Lagrangian treatment of saltating particles, which includes both a deterministic component (particle trajectory) and a stochastic component (collision and splash), will be used. Computer simulations will be conducted to investigate the effect of particle-fluid and particle-bed interactions. Flow visualization with a high-speed video recording system will be used for experimental verification. The mechanics-based bedload transport relation proposed in this project provides an improved approach to assess environmental flow problems in which reliable sediment transport prediction are needed.